RUI: Applications of Symbolic and Algebraic Dynamics to Knot Theory

The investigators will combine their two areas of expertise,
topology and dynamical systems, to investigate open questions
in knot theory. In particular, they will investigate Lehmer's
Question. Seventy years ago D.H. Lehmer began constructing large prime
numbers using polynomials that are small in a precise sense:
integral polynomials with Mahler measure close to but
different from 1. Lehmer could do no better than 1.17628...,
a value that he achieved with a remarkable polynomial of
degree 10. He then asked if that value could improved.
Lehmer's Question remains open despite the best efforts of
many. Lehmer's polynomial continues to appear in surprisingly
separated fields. The investigators will attack Lehmer's Question from the
perspective of topology and geometry. They will investigate
applications of Mahler measure to the study of knots and
links. Their methods will include traditional ones from
commutative algebra, group theory, geometry and topology, as
well as new techniques, many from dynamical systems. Computer
methods will be used to develop examples.

The mathematical theory of knots arose from
physical theories of the nineteenth century. Since then,
the field has expanded greatly, attracting the interests
of scientists in many fields, including biology, chemistry
and physics. Some reasons for the attraction are not hard to
see. DNA, solar plasma filaments and fluid flow, for example,
all exhibit knotting or linking behaviour. The investigators
will combine their two areas of expertise, topology and
dynamical systems, to investigate open questions in knot
theory. The proposed research will provide new understanding
of knots and links by using techniques from symbolic
dynamical systems, a mathematical branch of information
theory. It will promote and strengthen interaction between
researchers in different fields. Undergraduate and graduate
students will participate in the project.